REU: Neutrino and Cosmic Ray Astrophysics

***
9809408
Longley
In this RUI proposal Prof. Longley requests support for participation in the MACRO and MINOS Collaborations for himself and two undergraduate students. Both of these efforts have components directed toward the study of neutrino oscillations, one from cosmic rays, the other from an accelerator beam.
***